2010 Oceanographic Instrumentation

A request is made to fund additional and back-up instrumentation on the R/V Marcus Langseth, a 235' Global seismic vessel with general oceanographic capabilities operated by Lamont-Doherty Earth Observatory of Columbia University as part of the University-National Oceanographic Laboratory System research fleet. The request includes four items listed by priority:

MCS Streamer Recovery Devices
MCS Streamer Tow Leader RE Terminations
Processing, Computing and Logging Servers
Sound Source Jumper Rearrangement

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers